Information Sciences,Engineering and Technologies Scholars Program (ISET)

This program provides support for students pursuing baccalaureate and graduate degrees in electrical and computer engineering or computer science to prepare for careers in information science, engineering, and technology. Each ISET scholar has a faculty mentor who plays a key role in promoting scholarship and career development. Scholars are engaged in the research activities of the Center for Advanced Computation and Telecommunications (CACT), the Algorithms Laboratory, and other IT Labs at the University of Massachusetts Lowell.